Nonlinear Waves in One-Dimensional and Multi-Dimensional Conservation Laws

The focus of this research proposal is on the study of solutions of
one-dimensional and multi-dimensional systems of conservation laws.
In spite of an extensive experimental and numerical exploration of problems
that are governed by MULTI-DIMENSIONAL conservation laws, there is no theory
that would describe properties of nonlinear waves that arise as solutions of
these problems. Recent results by the PI and co-worker Keyfitz indicate that
for a large class of two-dimensional problems, including standard equations of
compressible flow, an analysis of their self-similar solutions leads to many
results that are shared by the entire class of problems. They include an existence and uniqueness theorem that holds in the region where the flow is supersonic, and a description of possible singularities that may arise at the boundary where the flow changes from supersonic to subsonic. To complete the analysis, a theory of free-boundary problems for the positions of transonic shocks is needed. Preliminary results in this vein are encouraging, and the PI, plans to continue research in this direction. Tools of study include analysis of free-boundary problems for which a degenerate elliptic equation of novel type has to be solved, and asymptotic analysis of singularities. When completed, the results of this project will contribute to solving open problems in the field of multi-dimensional wave interactions and shock reflection problems, which include an existence theorem for oblique shock reflection by a ramp, bifurcation criteria for two-dimensional elementary waves, and the correct function space for a general existence theory that will capture possible singularities in the solution. In ONE-DIMENSIONAL conservation laws several novel phenomena, recently discovered by the PI, call for further exploration and understanding. They include nonexistence of classical weak self-similar Riemann solutions and the presence of bounded amplitude, high frequency, oscillatory solutions replacing the classical ones. Using compensated compactness methods these solutions were shown to satisfy the system of conservation laws in a measure-valued sense. Understanding what causes nonexistence, and what is the physical meaning of the oscillations, is one of the goals of this research project.

Conservation laws are mathematical equations that describe processes central to
technology, such as high-speed flows, supersonic jets, as well as flows through
porous media which arise in environmental engineering and reservoir simulation.
Understanding the structure of solutions of conservation laws is crucial for a
successful simulation of these phenomena. The main difficulty lies in the fact
that solutions to conservation laws admit ``shock waves'', which correspond to
the sudden, abrupt changes in the flow properties. Shock waves influence the
stability of high-speed flows, and are crucial in the simulation of oil recovery. In addition, based on the recent PI's findings, multi-dimensional conservation laws admit ``singularities'' in the solutions that have not yet been theoretically understood and which are difficult to resolve numerically. Their presence influences the outcome of the simulations. This project proposes an original approach towards understanding these singularities. Even more generally, in this project the PI proposes an organized approach towards the development of a general theory that would describe the structure of solutions of multi-dimensional conservation laws such as the equations that describe high-speed flows. Because the methods used to study one-dimensional conservation laws cannot be generalized to more than one space dimension, this research area is wide open. However, since almost all processes in technology are multi-dimensional, the development of such a theory is an imperative. In addition to the research aspects of this proposal, aspects of the work involving nonlinear conservation laws have been used successfully by the investigator in graduate student education, and continuation of this effort in similar directions is proposed.